K-theory, C*-algebras and Index Theory of Elliptic Operators

Abstract
Kaminker

The researcher will work on three projects. Investigation will be
continued on the connection between hyperbolic dynamical systems and
K-theory of C*-algebras. In particular, the zeta function of a Smale
space will be expressed in terms of the K-theory of the stable algebra
and the induced homomorphisms. This leads to a general program to use
the K-theory of these C*-algebras as a replacement for ordinary
homology groups which were used in the past to study hyperbolic
systems. The second direction involves the study of the relation between the
Exactness conjecture and the Novikov conjecture for finitely presented
groups. If a group acts amenably on a compact space then both of
these conjectures hold. The relation between the existence of such
an action and approximation properties for the reduced C*-algebra will be
studied and precise relations between the two conjectures will be established.
In a third direction, work will be done on obtaining a higher index
formula for regular Lie groupoids. This will provide a formula for
the pairing of certain cyclic cocycle on the smooth convolution algebra of
the groupoid with the class in K-theory representing the analytic
index of an elliptic operator.

These projects are part of a general program to see how symmetry, in
its various forms, effects different parts of mathematics. It is
often the case that unexpected symmetry has important implications.
Solutions to important equations in physics and engineering have
been discovered and studied by using the fact that their form must
be unchanged under certain transformations. It is hoped that the
results of the present project will have similar applications.